An Integrated Signals and Systems Laboratory Experience

Engineering - Electrical (55)

This project implements an integrated laboratory experience in the signal and systems area in the electrical engineering curriculum. The development is based on prior work at Georgia Tech and uses the telecommunication instructional modeling system (TIMS) developed there. The project is developing a set of experiments that use the same laboratory platform in a four-course sequence. Evaluation includes both quantitative measurements and interviews with two groups of students: one that completed the new experiments and one that did not. The PI plans to disseminate their experiments and their assessment results using their web pages and publications in the education journals. The PI also intends to use the equipment in two on-campus programs for high school students with diverse backgrounds.